Electronic Processing Techniques for Scanning Optical Microscopy

This project will continue development of a real-time confocal scanning optical microcope. The theory of imaging and of the microscope itself will be extended from its present relatively elementary form. New types of contrast mechanisms will be investigated, such as the incorporation of dark field imaging, polarization imaging, phase contrast imaging, and fluorescence imaging in the real-time confocal optical microscope. New types of microscopes will also be investigated. One is the scanning correlation microscope, which uses correlation between a reference signal and the reflected signal from an object. This microscope offers the possible advantages of eliminating aberrations in the lenses and obtaining still better definitions than the scanning optical confocal microscope. Another is a new type of near-field microscope, the plasmon resonance near-field microscope. The use of plasmon resonance in this microscope should give greatly enhanced sensitivity and better control of the position of the probe from the object.